New Directions in Metal-Sulfur and Metal-Oxo Chemistry (Chemistry)

This research is centered on two objectives. One goal is focused on the synthesis and study of new types of metal-thiolate complexes as models for metal-sulfur centers in proteins. Specific systems include analogs for the ıFe(SR)4!1- center in rubredoxins2- the ıFe4S4(SR)4!1- center in high potential iron-sulfur proteins, the ıFe3S4(SR))3!2- center in 3Fe-sulfur proteins, and the ıNi(III)(SR)n! center in hydrogenases. Another goal is to explore new research directions in the area of metal-oxide compounds as analogs for relevant metal-oxide centers in biology as well as in the industrially important metal- oxide supported catalyst. The reaction chemistry of new types of ligands will be explored. Specifically, compounds that are apt to mimic the iron- or manganese-oxide centers in hemerythrin, ribonucleotide reductase, methane monooxygenase and Photosystem II will be investigated. This research is being pursued with the prospect of obtaining fundamental information about the structural, spectroscopic and reactivity properties of these metal centers in nature. The interactive activities include numerous lectures in graduate chemistry courses, and putting together an industrial scientist- graduate student seminar, directed at enhancing the graduate students' awareness of career opportunities in the chemical industry. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.